Floer Homology and Homology Cobordisms

Proposal: DMS-9971731

PI: Kim Froyshov

This project is concerned with Yang-Mills and Seiberg-Witten Floer homology groups of oriented homology 3-spheres Y. In his earlier work on rational Yang-Mills Floer theory the principal investigator has shown that interaction between irreducible flat connections and the trivial connection over Y can be described by a single integer. This integer is an invariant of the homology cobordism class of Y, and is additive under connected sums. The invariant is positive if Y bounds a smooth 4-manifold with non-standard negative definite intersection form. In the first part of the project the principal investigator will study the corresponding invariant in rational Seiberg-Witten Floer theory, which is defined for oriented rational homology 3-spheres with a spin-c structure. The second part will focus on the relationship between these two invariants in the case of integral homology spheres, using PU(2) monopoles. The object of the third part of the project will be to understand the homology cobordism invariants arising from Yang-Mills Floer theory with mod 2 coefficients. These invariants do not seem to have any analogues in Seiberg-Witten theory.

Broadly speaking, the principal investigator will study spaces of dimension3 and 4 using certain non-linear partial differential equations from theoretical physics.